Engaging Latino Audiences in Informal Science Education

Engaging Latinos in Informal Science Education is designed to address the low participation rate of Latino youth and adults in activities conducted by parks, refuges, nature centers, and other informal science education venues. The project objectives are to expand upon existing studies that attempt to identify barriers to Latino participation, work with communities to identify the tools needed to overcome barriers, and utilize the tools in established programs. Surveys and interviews conducted with Latino communities are designed to identify key measures that will improve participation in informal learning programs which are then implemented in the International Migratory Bird Day (IMBD) program. Park Flight international interns from Mexico, Central America, the Caribbean, and the US will work in Latino communities near seven sites that host annual IMBD. Deliverables include a comprehensive technical report resulting from the analysis of surveys and a toolkit to promote the involvement of Latino communities in informal science education. The multi-stage evaluation includes the annual evaluation of participation levels at seven treatment and five control sites, pilot testing of the key strategies for family involvement identified in the survey results, and formative evaluation of the project toolkit. Project partners are the National Park (NPS) Service, NPS Park Flight Migratory Bird Program, Colorado State University, Rocky Mountain Bird Observatory, PRBO Conservation Services, and six national parks. Strategic impact will be realized through the development and national dissemination of the project toolkit to almost 1000 partner offices across the US.